University of Connecticut's High Performance Connections to the Internet

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in studying educational outcomes of networked multimedia, networked-based monitoring and fault diagnosis, distributed services telemedicine, interconnecting distributed biological databases to establish a "virtual computational resource center"; network-based scheduling and supply chain coordination and networking controls for network edge multimedia appliances. Collaborating institutions include the Jackson Laboratory, the Institute of Genomic Research, Lawrence Livermore National Laboratory, Lawrence Berkeley National Laboratory, Los Alamos National Laboratory, Brookhaven National Laboratory, Oak Ridge National Laboratory, and the National Human Genome Research Institute, the Jefferson Laboratory at the University of Virginia and others.